Recovery from Striate Cortex Lesions Made in Infancy

It is known that there is a range of recovery to different kinds of brain damage. In the visual system of humans, damage to only the visual cortex of the brain often leaves residual functional vision, called "blindsight", that presumably depends on pathways from the eye to areas other than primary visual cortex. There is evidence that sparing or recovery of visual function is greater when cortical damage occurs during infancy rather than in an adult. This project investigates some of the mechanisms by which such visual recovery in very young animals may be more effective than recovery of older animals. Visual detection, localization and discrimination will be assessed for the field of vision normally represented in the excised tissue (the "field defect"), and recovery will be tracked as a function of time and of practice. Behavioral responses later will be compared to responses of single nerve cells in the visual regions of the brain outside the lesioned areas, and anatomical studies will explore the development of changes in connectivity. Results are likely to clarify how recovery in infants occurs better than in adults, and so will be very important to our understanding of the organization and development of the primate and human visual system.